CAREER: Modeling, Analysis and Computation of Stochastic Intracellular Reactions

The main objective of the proposed research is to
provide simplified dynamics and design efficient numerical methods for
complex intracellular stochastic chemical reacting networks. Numerical
schemes will be developed to simulate systems exhibiting multiple time
and concentration scales, and to solve transition paths and transition
rates for systems with metastability. Error analysis of the schemes as
well as sharper estimates on the transition rates will be
provided. Applications will be focused on developing and analyzing a
quantitative model for the Insulin response network, through
collaboration with biologists at Michigan State University (MSU). The
education plan includes training of graduate students that will lead
to Ph.D. theses, developing a graduate level course for students in
applied and computational mathematics, introducing the related topics
to undergraduate curriculum, and organizing a workshop on the same topic.
The proposed research will be crucial to the understanding of
functional issues of intracellular reacting networks at the system
level, which is becoming the new focus of genomic research.
Numerical studies of the multi-scale systems will lead to new insights into the simulation
schemes for stochastic systems. The development of accurate and
efficient numerical methods for multi-scale chemical reaction systems
involves novel analytical approaches from stochastic analysis. The study
of the fluctuation driven transitions in metastable chemical reaction
systems will find new applications for advanced probability theory and
optimization techniques. The multi-scale and stochastic methods
developed by the proposed research will find a wide range of
applications in biological sciences and nano-technologies.

The PI is going to build mathematical models and design efficient
computer based simulation algorithms for chemical reactions inside
living cells, which ususally involve many types of reacting channels
and reacting species, as well as random fluctuations. The proposed
research is to simplify and reduce complex models, which will lead to
insightful conceptualization of the system. The research will be
conducted in collaboration with biologists and the theoretical results
with be calibrated with real data generated by experiments in
labs. The targeted application, namely the modeling of Insulin
response network, has a significant potential for the promotion of
public health. Type 2 diabetes and impaired glucose tolerance are top
causes of morbidity and mortality in the United States. In the case of
insulin resistance, tissues such as muscle, fat and liver become less
responsive or resistant to insulin. The disorder is also linked to
other common health problems, such as obesity, hyperlipidaemia,
hypertension etc. The models and algorithms developed by the PI will
help to dandify the major reactions and reactants that are maintaining
the normal range of plasma glaucous in individuals throughout periods
of feeding and fasting. The research output will help to understand
the mechanism of the Insulin disorders and the cause of type2 diabetes.